Feature Group Utility in Model-Based 3D Object Recognition Systems

One of the most demanding applications in computer vision is model-based 3D object recognition. Such systems often use correspondence techniques to identify objects in an image; sets of bindings are formed between groups of scene features (e.g., points, curves, surfaces, or volumes) and compatible groups of model features. The discrimination ability ( or utility) of individual features (e.g. points, curves, surfaces, or volumes) and compatible groups of model features. The discrimination ability (or utility) of individual feature groups in these systems is a challenging and important problem in computer vision research. When recognition systems are expected to select the correct model(s) out of a database of hundreds or thousands, indexing methods (which quickly reject a subset of the model database from further consideration by the system) are useful or often essential if objects are to be recognized efficiently, and the use of feature groups offers a promising technique for performing this indexing task. This research investigates two facets of the feature group utility concept: saliency of feature groups extracted from the input image, and symmetric arrangements of features arising from inherent symmetries of the object models in the database. Preliminary experimental results are also described. Specific goals of the proposed research are to (a) place both the saliency and symmetry concepts on a firm theoretical basis, (b) generalize existing techniques for identifying salient and symmetric feature groups out of their current domain (of polyhedral or quadric surfaces into more expressive and generic classes of features, and (c) expand a current database of over 100 object models to include additional, more realistic objects.